Quantum Dynamical Processes in Chemical Physics

This project in the Theoretical and Computational Chemistry Program concerns development and application of methods for carrying out calculations on dynamical chemical processes. In particular, three body chemical reactions, both gas phase and recombination on surfaces, and low energy collisions of atoms and molecules with surfaces will be studied. New computational algorithms utilizing multi-dimensional discrete variable representations will be developed for the above studies. Other applications will include the description of vibration-rotation states of polyatomic molecules, isomerization, photodissociation dynamics, three body chemical reactions, and mixed quantum and "bath" stochastic or classical dynamics.